Hormonal Regulation of Hepatic Estrogen Receptor in the Turtle Chrysemys Picta

This is a Research Opportunities for Women Career Advancement Award, to enable Dr. Ho to determine the feasibility of studying estrogen receptor expression in estrogen target tissues of the freshwater painted turtle, Crysemys picta.